Automated Reasoning Software Engineering

Today, tools are needed to support and promote the use of formalisms in designing software interfaces concurrent algorithms, and digital circuits. Such tools must provide assistance with assessing the semantic content of designs, not just with their syntax. This project involves development of one such tool, the Larch Prover (LP). Current applications of LP include debugging Larch specifications, reasoning about circuit designs, and reasoning about concurrent algorithms. The project will continue developing LP in support of these and other applications, e.g., reasoning about specification in Larch and other specification languages, making use of specifications in optimizing compilers, and verifying locking levels in Modula-3. The project will develop front ends to serve as interfaces between these applications and LP. It will also enhance LP to serve better as a back end for such applications. Projected enhancements to LP include more general quantification, additional inference mechanisms (congruence closure, decision procedures for linear orders), and further assistance for handling complex proofs ( scoping, polymorphism, proof management). These enhancements will be driven by the demands of applications: they will be made within a context that is oriented towards debugging proofs and that emphasizes ease of interaction, good performance, proof strategies based on simplification, and replayable proof scripts.